RUI: Genetic and Nuclear Cycle Analyses of Armillaria Species

These investigators have examined the DNA content of individual cells of the wild mushroom Amarilla mellea. They observed that the basidiocarp (the part above ground) contains cells that have one haploid nucleus, while the mycelium (root) is thought to be diploid. The meiotic events involved in spore formation occur within specialized structures of the basidiocarp and must be separate from those events that give rise to the haploid cells during generation of the basidiocarp itself. The applicants propose a careful microscpoic examination of the basidiocarp to determine the site (or timing) of haplodization. They hope to identify particular cells undergoing meiotic divisions and to characterize the structure of the chromosomes in these cells. They also propose a simple genetic test of individual cells to see if the haploid cells have different genotypes. If present, such genetic mosaicism could play an important role in the regulation of development of the organism. Besides documenting an unusual and interesting phenomenon, these studies will provide an opportunity for a number of undergraduates to participate in scientific research.